Acquisition of a Departmental Supercomputer for Theoretical Mineral Physics and Organic Geochemistry

9512627 Cohen This award provides partial funding (70% of total cost) for the acquisition of a computer system with large memory and fast memory access time that will be installed and operated in the Geophysical Laboratory at the Carnegie Institution of Washington. The Carnegie Institution is committed to providing the remaining funds needed for the purchase. The principle investigator and colleagues at the Geophysical Laboratory are engaged in research in the field of theoretical mineral physics to calculate the physical and chemical properties of bulk condensed matter and molecules under the extreme temperature and pressure combinations existing in the Earth's deep interior. The calculations involve first principles methods, which are independent of parametric fits to experimental data, but use theories such as the Density Functional Theory, electronic structure methods, or ab initio models, all of which require very intensive computer calculations. ***